Isolation of the Gene for the Cysteine Proteinase Inhibitor Cystatin

This is a Research Opportunities for Women Research Planning Grant to support preliminary studies and other activities related to the development of a research project.